Scientific Meeting: Vestibular Infuences on Spatial Orientation: April 16-19, 1999: Kayaui, Hawaii

The vestibular system uses organs of the inner ear called the semicircular canals and the otolith organs to detect gravity and movements of the head. It is a system with extensive influence on eye movement, head position, and control of locomotion and posture. This international conference brings together active researchers in this field to discuss recent results and their implications from biological, biomedical and bioengineering perspectives. Emphasis in this conference will be on the interactions of vestibular input with visual, auditory and other sensory modalities, and on the integrated behavior of spatial orientation in animals and humans.
The meeting will have an impact on the participating students and young investigators by involving them with other researchers at the leading edge of the field, and will have an impact on other areas of neuroscience and physiology by the integrated perspective.